Dissertation Research: Is Salmon Specialization Concurrent with Changing Village Organization in the Kodiak Archipelago

ABSTRACT OPP-9629947 Stoltman/Partlow This dissertation grant proposal focuses on subsistence specialization during the last 1000 years in the Kodiak Archipelago in Alaska. The role of marine resource specialization has been debated in the North Pacific region. This archaeological study will involve systematic collection and analysis of faunal remains from two prehistoric sites. Multiple faunal seasonality indicators will be used to test the hypothesis that salmon specialization was a major factor in changing village organization. The research will be part of, and will benefit from, a larger-scale project on Alutiiq history by the Afognak Native Corporation.